Engineering Research Equipment Grant: Upgrade of Existing Computer Equipment

Engineering equipment funds are being requested to continue the development of a computer facility for control and systems research. This computer facility will enable the principle investigator and their graduate students to conduct control and systems research using the best analysis software available and to improve and replace existing software when needed at minimum cost.